TSU College of Science and Technology Enhancement Program (STEP)

Texas Southern University (TSU) proposes a Science and Technology Enhancement
Program (STEP) One-Year Planning Grant to the NSF Historically Black College and
University Undergraduate Program (HBCU UP). The objective is to increase the
recruitment, retention and graduation rates of students in undergraduate programs
in science, mathematics, engineering and technology (SMET) areas through quality
enhancements of teaching and student learning at the University. The TSU STEP
will achieve this overall objective through four (4) programmatic thrusts:
Student recruitment and retention for academic success, Faculty development
in teaching and scholarly achievements, Curricular reforms through use of
technology, and Assessment and evaluation for sustainability beyond NSF funding.
These programmatic thrusts will have measurable goals and timelines to achieve
the overall objectives of the TSU STEP.

During this one-year planning period the TSU STEP will develop a comprehensive
recruitment and retention plan for science and technology. Industry will become an
integral part of the S&T programs trough establishing a Corporate and Professional
Advisory Committee for the College of Science and Technology and a discipline
specific one for each department. Comprehensive plans to assist faculty teaching
with technology and enhancing their research capacity will be developed. Each
undergraduate academic program will recommend improvements in their curriculum
to enhance the quality of the education. An assessment and evaluation plan will be
developed such that the TSU STEP will be sustainable after NSF funding has expired.